Theoretical Physics

9309888 Yang A broad program of research in theoretical physics will include work on fundamental issues in the foundations of quantum physics, on superstring theory, investigations in quantum chromodynamics, including some involving extensive use of computers, and studies of phenomena of enormous practical application, such as materials exhibiting superconductivity at high temperatures. Quantum physics is important for all descriptions of phenomena which take place at short distances, while superstring theory offers the exciting possibility of a unified description of all basic interactions. ***